NSF Student Travel Grant for 2019 International Conference on Computer-Aided Verification (CAV)

This travel grant provides support for 15 US-based students to attend the 30th Conference on Computer-Aided Verification (CAV) to be held in New York City, July 15-18th 2019. CAV, one of the premier conference in formal verification, is dedicated to the advancement of the theory and practice of computer-aided formal analysis and synthesis methods for hardware and software systems. The conference covers the spectrum from theoretical results to concrete applications, with an emphasis on practical verification tools and the algorithms and techniques that are needed for their implementation.

This travel grant will enable career development and learning opportunities for US-based and/or US citizen graduate students. Attending conferences like CAV is an important component of graduate school education for our society's future computer science researchers. Students have the opportunity to discuss leading edge research with world-class researchers in formal methods, and establish networks, connections, and mentoring relationships that will serve them well during their research careers. This project aims at increasing the participation of students from underrepresented groups and those from smaller institutions of education, to provide them with equal opportunities, rather than leave them behind.